Ring Mediated Interaction of Non-Rigid Moeities

In this project in the Physical Chemistry Program of the Chemistry Division, Professor Lee H. Spangler of Montana State University will study the effect of the electronic state of a molecule on interactions between its non-rigid parts. Specifically, methyl and amine interactions will be examined as a function of distance in molecules with pi-electron systems using various spectroscopic techniques applied to samples prepared in a supersonic jet expansion. An understanding of the influence of electronic state on conformational changes is expected to result. %%% The large amplitude, low frequency motions of molecules affect the conformational preferences and reaction specificity of those molecules. For example, knowledge of the conformation of a reagent molecule obtained from the fundamental study of the structure of a much smaller related species allowed one researcher to devise a synthetic route for a large class of polyether antibiotics. A detailed understanding of what determines conformational preferences as a function of molecular environment and electronic state is also key to understanding biological activity. The current project aims at gathering conformational information in several types of molecular systems.